SGER: Inventory of the Biota in Amazonian Rainforest in Northern Peru: A Pilot Project

This pilot project, co-funded by Occidental Petroleum and the University of Kansas, will inventory terrestrial vertebrates, insects and woody vegetation and measure abiotic/physical data in the Amazon rainforest of northern Peru. The inventory will serve as the basis for a biological master plan for the Peruvian government to survey, monitor and reclaim areas being developed by Occidental and other concerns for petroleum extraction. The pilot project will survey plotted quadrats at two sites. Voucher specimens will be divided between KU and the Museo de Historia Natural in Lima. Permits will be issued by the Peruvian Government under the auspices of the Associacion de Ecologia y Conservacion (ECCO) in Lima. CITES threatened and endangered species will not be collected. The NSF funds will support the vertebrate component of the survey, with OXY supporting the woody vegetation, insect and physical parameters component. KU has already funded the development of this project and will support travel by KU personnel. The quadrats will be permanently marked for future work, which OXY promises to support. This collaboration promises to become a long-term partnership between KU and OXY in conservation and restoration projects in Peru. %%% This pilot project is a uniquely opportunistic and fruitful collaboration between US industry, US basic academic science, Peruvian government agencies and NSF to establish the responsible monitoring, conservation and reclamation of biodiversity on lands impacted by extractive industries. The study, funded with Occidental Petroleum and the University of Kansas, will inventory terrestrial plants and animals and measure relevant climatic, physical and chemical data on lands in the Amazon rainforest of northern Peru being developed by Occidental and other concerns for petroleum extraction . The inventory will serve as the basis for a biological master plan for the Peruvian government to survey, monitor and reclaim such areas throughout the country.